15th IMS New Researchers Conference

The proposed meeting will take place over three days, August 1-3, 2013, at the Centre de recherches mathematiques in Montreal.
This proposal describes plans for the 15th New Researchers Conference, a conference series organized
by and held for junior researchers under the auspices of the Institute of Mathematical Statistics (IMS).
The primary objective is to provide a much needed venue for interaction among new researchers in
statistics and probability. The proposed meeting will take place over three days, August 1-3, 2013, at the
Centre de recherches mathematiques in Montreal. The meeting will be held immediately preceding the
Joint Statistical Meetings (JSM). Participants will be statisticians and probabilists who have received their
Ph.D. within the past five years or are expecting to receive their degree within the same year. Each
participant will present a short expository talk and a poster. Topics will cover a variety of areas in
statistics and probability, from theory and methods to applications. Senior speakers will give plenary
talks for inspiration and take part in four discussion panels covering topics of importance for young
people embarking on an academic/research career: teaching, mentoring, publishing and funding.

This conference series is explicitly aimed at training the future leaders and workers in statistics and
probability. In helping to create networks of new researchers, it lays the groundwork for future
collaboration and informal exchange of ideas and knowledge. It is also critical for building professional
cohesion within the fields of statistics and probability and setting new frontiers for research. Meeting
people outside of one's research specialty area, and learning about their research, favors a more
comprehensive view of research, which is important when taking editor positions and other professional
service activities. The conference attracts participants with different backgrounds and nationalities, and
underrepresented groups (women, minorities and people with disabilities) are explicitly encouraged to
attend. The conference website is available at http://www.math.mcgill.ca/nrc2013.